The Sub-Antarctic Flux and Dynamics Experiment: Renewal Proposal for Data Analysis and Model Experiments

9912320

This collaborative project consists of a variety of analyses of the
dynamics of the Sub-Antarctic Front (SAF) based primarily on data
collected during the recent Sun-Antarctic Flux Dynamics Experiment
(SAFDE). The analyses will address: the structure of mean circulation
features; mass and heat transports through the SAFDE region; zonal
momentum and vorticity budgets; mesoscale variability in the SAFDE
region; the vertical structure of meanders of the SAF; and cross-frontal
transport. In situ data from SAFDE will be combined with remotely
sensed data for the region, particularly altimeter data. A comparison
will be made between the structure and variability of the SAF observed
during SAFDE and the SAF exhibited in recent GCM simulations.